The Delaware Teacher Enhancement Partnership: A Model for Implementing the National Council of Teachers of Mathematics(NCTM) Standards

The University of Delaware will conduct a four-year project to enhance 230 mathematics teachers and administrators of grades 7 through 9 in making mathematical connections, in problem solving, and in reasoning and communicating about mathematics. The focus of participants' mathematical experiences will be situation-centered mathematics tasks conducted in a technologically rich learning environment. Teacher involvement will use the teacher-as-learner and teacher-as-researcher models. Teacher participants will be expected to attend at least two three-week summer workshops, with administrators attending at least one day per summer of these workshops to understand the spirit of the models being used. Mathematics content focus will be on combinatorics and probability (1991 pilot), functions and statistics (1992), geometry and discrete mathematics (1993), summarizing, organizing into Standards curricula for grades 7 through 9, and leadership training (1994), and leadership and dissemination (1995). During the school year, weekly two- hour after school meetings will be held in each district where the previous summer workshop participants will coach their colleagues, new lessons will be piloted, and curricula planned. In addition, monthly three-hour workshops will be held where project staff will extend and clarify summer material. Lastly, project staff will visit schools twice per week. The project includes a collaborative learning component for administrators where they will consider basic leadership tasks needed to facilitate change. The project will also involve substantial collaboration with 8 of Delaware's 16 public school districts. Thorough dissemination of the program's features and implementation strategies for replicating the project will be undertaken in the remaining 8 districts and the 3 vocational-technical districts in Delaware. The project is endorsed by the Delaware State Systemic Initiatives Project 21. University of Delaware and school district cost-sharing accounts for 37% of the NSF budget. The project is well-planned, employing methodology suggested by current research in the teaching and learning of mathematics, and is systemic in nature. It addresses the many facets of the educational system needed to insure change in the classroom.